Collaborative Research: Next-Generation Solvers for Mixed-Integer Nonlinear Programs: Structure, Search, and Implementation

Collaborative Research: Next-Generation Solvers for Mixed-Integer
Nonlinear Programs: Structure, Search, and Implementation

Many scientific, engineering, and public sector applications involve
both discrete decisions and nonlinear system dynamics that affect the
optimality of the final design. Mixed-integer nonlinear programming
(MINLP) optimization problems combine the difficulty of optimizing over
discrete variable sets with the challenges of handling nonlinear
functions. MINLP is one of the most flexible modeling paradigms
available, and an expanding body of researchers and practitioners,
including computer scientists, engineers, economists, statisticians, and
operations managers, are interested in solving large-scale MINLPs.
Unfortunately, the wealth of applications that can be accurately modeled
by using MINLP is not yet matched by the capability of available
algorithms and software. This research will address the mismatch
between natural optimization models and available robust optimization
solvers, developing and delivering powerful new solvers for
mixed-integer nonlinear programs.

The research thrusts are in three main categories. In the first thrust,
the investigators study the structure of fundamental MINLP models,
developing preprocessing techniques and strong valid inequalities. The
second thrust, search, leverages the results of the structural analyses
to design search and partitioning strategies for algorithms. The third
thrust, implementation, focuses on implementing the resulting
algorithmic frameworks efficiently on modern computational resources.
The project has the transformative goal of making MINLP into an area in
which researchers and practitioners can access robust tools and methods
capable of solving a wide range of important, commonly occurring
decision support problems.